Acquisition of a Time-of-Flight Secondary Ion Mass Spectrometer for the Garcia Center Consortium

9724553 Schwarz A time-of-flight secondary ion mass spectrometer (TOF-SIMS) will be acquired by Queens College. The instrument will be a component of the Center for Polymers at Engineered Interfaces, a Materials Research Science and Engineering Center encompassing several institutions in the New York City area. The TOF-SIMS will be used for studying polymer film phenomena, including depth composition profiles, dewetting and spinodal decomposition of tailored surfaces. It will also be a part of the Center's undergraduate research and high school outreach programs. %%% The instrument will significantly enhance the Center's research capabilities and its education programs. ***